Support for Young US Scientists Attending the 2011 International Accelerator School for Linear Colliders, Pacific Grove, CA: November 6 - 17, 2011

The International Linear Collider (ILC) is a high priority project in the international high-energy physics program. As part of an ongoing effort to educate and train young scientists for this project, the ILC Global Design Effort (GDE), the ILC Steering Committee (ILCSC) and the International Committee for Future Accelerators (ICFA) Beam Dynamics Panel will jointly organize the Sixth International Accelerator School for Linear Colliders in 2011 to be held at the SLAC National Accelerator Laboratory in Menlo Park, CA. This award provides funds for partial support to U.S. students to attend the school.